Surface homeomorphisms

This project explores the mathematics of surfaces and the many ways they can be deformed without tearing or gluing. Some surfaces are familiar, such as a sphere or a doughnut, while others are far more intricate, with infinitely many holes or directions to infinity. The goal is to understand these transformations and develop effective ways to describe and classify them. For simpler surfaces, classical theorems provide a clear picture, but for infinitely complex surfaces, many fundamental questions remain unanswered. This project develops new tools for studying these spaces, investigates the behavior of natural surface transformations, and examines the geometry of the spaces that encode all possible shapes a surface can take. In addition to advancing research in geometry and topology, the project will provide training opportunities for graduate students and early-career researchers while fostering an inclusive and collaborative mathematical community through mentoring, workshops, and research programs.

The project has three interconnected research directions. First, it develops Nielsen–Thurston-type structure theorems for homeomorphisms of infinite-type surfaces, extending the investigator's previous work on tame and extra tame maps and using invariant laminations, curve and line dynamics, and measure-theoretic decompositions to understand periodic, translational, irrational-rotation-type, and non-tame behavior. Second, it studies pseudo-Anosov mapping classes on finite-type surfaces, focusing on genericity, classical constructions of Thurston and Penner, arithmetic properties of stretch factors, homological obstructions, and random walks on mapping class groups. Third, it advances the theory of the Thurston metric on Teichmüller space by analyzing coarse and fine behavior of Thurston geodesics, subsurface projections, active intervals, harmonic stretch rays, fellow-traveling phenomena, and the structure of geodesic envelopes. Together, these directions aim to clarify the relationship between surface dynamics, mapping class groups, hyperbolic geometry, and Teichmüller theory.